PEET: Biodiversity of Australasian Ground Spiders

9521631 Platnick Ground spiders are among the most abundant and important predators in both forest and drier habitats throughout Australia, Tasmania, New Caledonia, and New Zealand. This project will involve a comprehensive survey of the Australasian ground spider fauna, resulting in detailed information of the characteristics, distributions, and interrelationships of an estimated 650 species. %%% Because these spiders tend to have relatively small distribution ranges, the research should enable us to determine the areas within Australasia that house the largest numbers of endemic ground spider species, and that may therefore be of primary importance for conservation. The research will also enable a detailed analysis of the interrelationships among those areas of endemism (thereby providing clues to the phylogenetic history of both forest and semi-arid ecosystems within Australia), and will also provide a thorough test of the existing higher classification of these spiders, which has been based primarily on northern hemisphere species and may require significant alteration to accommodate the Australasian faunas. In addition to the taxonomic significance of the project an important aspect will be the training of graduate students and postdocs in the field of spider taxonomy. Also, specimen data obtained by the research will be made available electronically to the scientific community. The host institution is providing as a cost share commitment an artist and a technician to assist with the project. ***